Earth System Education Partnerships with Research Institutions Workshop, Winter 2001, Boulder, Colorado

0107199
Ruzek

The National Center for Atmospheric Research (NCAR) and its parent body the University Corporation for Atmospheric Research (UCAR) exemplify a national research organization that has enormous potential to positively impact SMET learning at all levels. Excellent educational programs already bridging the research and education communities can be further leveraged to reach a diverse, interdisciplinary national and international education audience by collaborating with consortia of universities and colleges seeking closer ties to research institutions. NCAR will host the "Earth System Education Partnerships with Research Institutions" workshop January 29-31, 2001 in Boulder, CO. The workshop will bring together a small group of Earth system education leaders with NCAR and UCAR personnel to engage in a strategic discussion of ways to enhance and expand research institution involvement with the education community.